Algebraic Varieties, Birational Geometry and the Structure of the Galois Groups

The purpose of the proposal is to study the geometry of algebraic varieties
and their invariants from different points of view. In particular the
investigator and his colleagues study
the structure of fundamental groups and universal coverings of algebraic
varieties, the problem
of placement of singularities, restrictions on the concentration of singular
points in special fibers of the fibrations of algebraic varieties. In the
latter case the goal is to develop a sufficiently simple method which can be
generalized to the case of arithmetic family of curves. The study of the
Galois groups of functional fields is going to provide with an alternative
approach to the problems of birational geometry.

The investigator suggests to continue a broad scope of research in the area
of algebraic geometry with potential applications to number theory and
theoretical physics. Of special interest is the study of a formula
that provides nontrivial estimates for a number of solutions in equations
similar in form to the famous Fermat equation..